Upper Ocean Circulation in the Subpolar and Northern Subtropical North Pacific

In this project, the Principal Investigators will collaborate with Russian and Canadian scientists in a repeated survey of the upper 1500 meters of the subtropical and subpolar North Pacific. The total program includes four surveys of the Oyashio/Kamchatka Current region, one geochemistry cruise in the western North Pacific, and spring and fall trans-Pacific cruises each year for four years that cover all the major circulation features north of the Subtropical Front. US participation in the two trans-Pacific cruises, will allow the PI's to gain access to the entire data set, allowing them to study a number of major questions related to North Pacific circulation.